Application of Ultrasound Technology in an Undergraduate Animal Science Curriculum

This project trains undergraduates in noninvasive techniques to study biological principles and physiological functions of mammalian animals. They also receive exposure to new technologies that are developing exponentially, Ultrasound and computer equipment, for example, are used to monitor lean tissue and adipose accumulation, identify soft tissue injuries, and monitor reproductive functions. Ultrasound instruction and computer applications are also being implemented in laboratory sections of core classes. Overall, Instruction supplements concepts introduced in lecture, and students become familiar with use of equipment and interpretation of ultrasound images and scientific data. The noninvasive capability of the equipment also provides a unique ability to study basic biological properties which are applicable to all mammals.